REU Site: SUMMER UNDERGRADUATE RESEARCH FOCUS (SURF): Climate Change, Global Warming and the Health of Texas Bays and Estuaries

An award was made to Texas A&M University-Corpus Christi to provide research training for 10 weeks for 10 students, for the summers of 2010-2015. The Summer Undergraduate Research Focus (SURF) investigates climate change and global warming effects on the aquatic environment and surrounding landmasses. Topics of investigation include coral bleaching, ocean acidification, decreased populations of aquatic species, aquatic diseases, harmful algal blooms, invasive species, remediation efforts and the health of bays and estuaries. Program participants (SURFers) engage in hands-on research, are mentored by faculty and peers, and receive training in ethics and professional skills. These elements generate an interest in science and an enthusiasm for scientific discovery, as well as provide role models and build self-confidence. Recruitment methods include personal contact with faculty members and posting on national listservs and the NSF REU website. Selection criteria include evaluation of the student's application essay, letter of recommendation, career plans, science courses taken and GPA. SURF encourages applications from minority students and students at primarily undergraduate institutions. Students are contacted at least twice annually to track their progress; they are also encouraged to join the SURF Facebook page. In addition to these tracking methods, three surveys are conducted during the summer. A common assessment tool is also used. Following a one-week orientation, the standard week includes four days of laboratory/field research and one day of group Research Ethics and Professionalisms activities. SURFers are introduced to the responsible conduct of research, scientific ethics, careers in science and professional skills, such as poster preparation, oral presentations, writing professional resumes and personal statements for graduate school. Each SURFer delivers an oral presentation on his/her research at our SURF Symposium. For information on the program contact Kevin Strychar, Ph.D., the principal investigator, at 361-825-5883 or [email]. The SURF URL is www.sci.tamucc.edu/surf.